Properties of Epoxy Mortar for Highway Bridges

Many bridge decks of reinforced concrete which were constructed during the 1950 decade have been deteriorating and are now in need of repair or replacement. One method is to replace the entire deck with precast reinforced panels which are bonded together with an epoxy mortar. This project will investigate the physical properties of the epoxy mortars for a range of temperatures from freezing to high summer values to determine the behavior of the material to resist the environmental and dynamic forces of the traffic on the bridge.